Identification and Characterization of Premotor Excitatory Interneurons

Stimulation of the skin results in muscle activity that causes a withdrawal of the limb away from the point of stimulation, a "protective" reflex. This response to gentle skin stimulation is a very widely studied model system used to investigate neuronal plasticity. This plasticity, a change in activity resulting from experience, is believed to underlie some of the simplest forms of learning. By using a combination of neuroanatomical and neurophysiological techniques, Dr. Durkovic and his colleagues are constructing a detailed map of the neurons (nerve cells) which mediate this modifiable protective reflex. Dr. Durkovic's previous studies have shown that this reflex can be produced by neurons located entirely within the spinal cord. In the present set of experiments, he first deposits fluorescent dyes in the output regions (motoneuron pools) of the spinal cord. These dyes undergo retrograde neuronal transport--they are carried backwards into the cell bodies of neurons that send axons toward the motoneuron pools. These neurons are then identified by using a special fluorescence microscope, and the stained cells are then mapped within specific spinal cord regions. Dr. Durkovic is also stimulating the motoneuron pool itself, to excite the cells that project into these regions. He records from the cell bodies of the activated neurons, and then localizes the recording site(s) within the spinal cord. The electrical activity of these neurons and muscles are monitored to see if they are related to each other. Those neurons activated by skin stimulation, and whose activity is related to muscle activity, are thus identified as being part of the neural circuit of the protective reflex. This work will help to identify the characteristics of the neural pathways involved in protective reflexes. It will also identify components of the neural circuitry directly involved in the production of reflex modifications analogous to classically conditioned responses.